Acquisition of a Scanning Microdensitometer

This award provides support for the acquisition and modification of components into a microdensitometer system for measuring the intensities of diffracted x-rays as recorded on x- ray sensitive film. The instrument will be developed and installed in the Department of Geology and Geophysics at the University of California at Berkeley. It will be used primarily in the characterization of materials subjected to ultra-high pressures during laboratory experiments intended to mimic conditions inside the Earth's deep interior.